Physical Interpretation of Hysteresis Loops

9814390
Tauxe

The response of a magnetic substance to an applied magnetic field depends strongly on the physical properties of the material. Much can be learned by monitoring that response through the study of hysteresis loops in rock and paleomagnetic studies. As with many rock magnetic techniques, measurement is quick, but interpretation of the data is very complex. Nonetheless, much can be learned in a short amount of time by analyzing the loops in an informed way. This proposal outlines an approach for improving the interpretation of magnetic hysteresis loops based on numerical and experimental constraints.